Oceanographic Instrumentation, R/V Cape Hatteras

The Duke University Marine Laboratory has requested several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V CAPE HATTERAS, a research vessel owned by the NSF and operated by Duke University. A substantial part of the ship's operating schedule during 1988 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -shipboard computer for the Acoustic Doppler Current Profiler, -additions to the SAIL shipboard data logging system, -a deep water CTD system for collecting precision temperature and conductivity data as a function of depth, -digital data recording system for seismic system, and -additional spare circuit boards and parts. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.